Conference: "Converging Approaches in Computational Biology"to be held September 13-16, 1990, in Rensselaerville near Albany, New York

The principal investigator and several colleagues will organize the interdisciplinary meeting entitled "Converging Approaches in Computational Biology". The aim of this conference will be to identify those computational tools common to several disciplines and to facilitate an exchange among computational biologists in an interdisciplinary atmosphere. The proposed meeting will bring together scientists working in a wide range of disciplines (such as x-ray crystallography, electron microscopy, sequence analysis, neurophysiological signal processing) with the purpose of encouraging interdisciplinary exchange on underlying concepts of mathematical modeling and techniques of numerical analysis in biology.